Quantitative Models in Psychophysics

Sensory capabilities can be measured quite precisely by an experimental approach called psychophysics, in which the subject reports whether or not a particular stimulus signal is detectable. Most psychophysical work on human subjects involves visual or auditory stimuli. A variety of precisely quantified stimulus parameters can be varied, and the subject's threshold for detection measured or computed as a probability of correct response. This Accomplishment Based Renewal will investigate a class of psychophysical tests called adaptive procedures, with the goal of improving the efficiency of such tests, which otherwise can require very large numbers of stimulus presentations to obtain reliable results. Many of the new techniques make specific assumptions about the nature of the sensory processes. This work will test these assumptions to see if they are valid, and to see if the new methods may substantially improve the measurement efficiency. Results will have impact on visual and auditory science, and on related areas of work on signal detection processing, and sensory psychology.